Studies of RNA and Protein Dynamics via NMR Relaxation Measurements

The principal objective of this research is to study the intramolecular dynamics of some very important classes of ribonucleic acid (RNA) molecules and several members of a family of calcium-binding proteins. Experimental data on dynamical processes in these biomolecules will be obtained via the measurements of nuclear magnetic resonance (NMR) relaxation rate constants; development of appropriate methodologies for measuring heteronuclear relaxation rate constants will be necessary. NMR spectroscopy is a powerful method for obtaining detailed, site- specific information on the structure and dynamics of small- to medium-sized biomolecules in solution. By measuring various NMR relaxation rate constants for specific nuclei in molecule it is possible in principle to characterize the types, amplitudes and rates of various internal motions over a wide range of time scales. The specific aim in the RNA studies is to determine the general characteristics of dynamical processes in RNAs, such as the relative mobilities of bases and sugars in loops and duplex regions, the dynamics of nucleotides in loop regions or bugles compared to nucleotides in duplexes, and the relative mobilities of mismatched basepairs compared to standard Watson-Crick basepairs. The specific aim of the protein research is to study the internal dynamics of several members of a calmodulin superfamily of calcium-binding proteins. %%% The internal mobility and flexibility of biomolecules play key roles in virtually all biological processes; for example, fundamental processes such as enzyme activity, molecular recognition and various molecular transport mechanisms depend heavily on the intramolecular dynamics of participating proteins, nucleic acids and other biomolecules. Thus, to obtain a better understanding of the physical basis for the functional activity of these biomolecules it is extremely important to probe their dynamical properties. To date very few physical studies have been made of the structure and dynamics of RNAs, and thus the proposed NMR experiments should provide invaluable information regarding these molecules which have a central role in so many fundamental, cellular processes. The dynamics studies of the calcium-binding proteins will be very important for understanding their functional activity and for helping to establish the basic principles underlying the inter-relationships of protein structure, function and dynamics. The calcium ion functions as a second messenger in a range of biological processes. In these systems, transient variations in the concentration of calcium ion are translated by regulatory calcium-binding proteins, which undergo conformational changes when they bind calcium ions. The structural aspects of calcium-binding proteins have been under investigation in many laboratories for some time, but only recently has it become feasible to study in detail their internal, dynamical properties.